Atomic Resolution Studies of Solute Atom Segregation and Phase Transitions at Internal Interfaces

This program examines solute atom segregation and phase transitions at internal interfaces (grain boundaries and stacking faults) in body-centered cubic and face-centered cubic metal alloys. A goal is to understand phase equilibria at internal interfaces. Interface chemical composition, geometry, and structure are analyzed by atom probe field ion microscopy, high resolution analytical microscopy, and transmission electron microscopy. Computer simulation is performed by Monte Carlo calculations using the embedded atom method to correlate experimental results with theory.